Crosslinked Enzyme Cryastals as Catalysts in Organic Synthesis

9306424 Navia This Phase II Small Business Innovation Research (SBIR) project deals with the development of crosslinked enzyme crystals (CLEC) and their catalytic applications to organic synthesis. Specifically, crystalline esterase and lipase enzymes will be crosslinked with glutaraldehyde to form immobilized enzyme particles which can be lyophilized and stored. These CLECs will remain catalytically active and retain their mechanical integrity under harsh manufacturing conditions. CLEC particles are individual crystals and will not require inert support structures. Their well-defined facets will promote the formation of monodisperse suspensions that will facilitate the scale-up of enzyme-based processes to commercial volumes, particularly in organic solvents. The research will focus on CLECs of lipase and esterase enzymes used by the chemical industry in the manufacture of chiral intermediates and pharmaceuticals. %%% This SBIR Phase II project will continue the advances initially started in the Phase I studies. An important goal of the SBIR Program is the ultimate conversion of NSF-supported research into technological innovation and commercialization. ***